Strongly Correlated Quantum Systems

Research will be undertaken on the quantum mechanics of strongly- correlated many-body systems. The objectives are to enhance our understanding of novel phenomena which cannot be addressed by simple perturbation theory. Systems of interest include the integer and fractional quantum Hall effect; transport in mesoscopic devices; the interplay among disorder, interactions and superconductivity in one-dimensional systems; and, the problem of fractional statistics. An important question remaining in the integer quantum Hall effect concerns the nature of Anderson localization in the presence of disorder. The focus of the investigation on the fractional Hall effect will be on the instability to Wigner crystallization in the low filling factor regime and on the nature of edge-state excitations and their role in the transport properties of mesoscopic devices. A central theme of the Hall effect work is the deep and wide-ranging implications of the analyticity of the quantum wave functions in the lowest Landau level. Previous work on the superconductor-insulator transition will be extended to one-dimension and certain exactly soluble models will be investigated. The notions of fractional statistics will be put to practical application in the study of quantum spin systems in two-dimensions.